UIG - University/Industry Educational Opportunity in Design - Civil Engineering

The project provides a unique educational opportunity for under-graduate civil engineering students by involving practitioners in the educational process. The emphasis is on the sequence of project implementations from conceptual design to construction and operation. A senior design course is to be developed for implementation in spring 1987. The industrial partners will give the presentation in their headquarters in Chicago, a live TV and telephone link will be established, the audio and video signals will be transferred by microwave to an uplink station. The presentations will be recorded on videotapes for future use. As part of the final report, an instruction manual is to be made available for subsequent use by other institutions of the instructional material devloped under this project.